Interfaces and Model Checking for Software

ABSTRACT
0234690
Interfaces and Model Checking for Software
PI: Luca de Alfaro

When software is used in critical applications, errors that go undetected in the design phase and occur during actual system operation can have disastrous consequences. The proposed research focuses on the development of techniques for software verification based on the joint use of
model-checking and interface theories.

Software model-checking constructs and analyzes finite abstractions of the software, refining the abstractions until they can be shown to satisfy a property, or until errors are found in the software.
Interface theories permit the specification of the interaction behavior of software components.
The proposed research will combine these two techniques into a scalable and compositional approach to software verification, where model-checking is used to analyze individual software components, and interfaces are used to specify and verify the interaction between the
components in a design.
The approach will be applied to the verification of the NASA MDS testbed.

The intellectual merit of the proposed project consists in the
development of a compositional approach to software verification based
on the joint use of methods for single-component and
multiple-component analysis.
The broader impact consists in the development of tools and approaches
for the design-time validation of software, thereby increasing both
dependability and quality of software systems.